REU SITE: Engagement of Undergraduates in Theory, Algorithm & Applications of Science and Engineering in Information Technology

The Research Experience for Undergraduate Site at the University of Toledo
provides a unique opportunity for 10 undergraduate students to perform
supervised research and obtain rich experiences in a diverse and
multicultural environment. In this program, each student carries out an
independent research project under the close guidance of a faculty mentor
during 10 weeks of summer.

The research projects cover a wide range of research topics in the field
of Information technology such as computational algorithms, software
engineering, architecture, graphics, optimization, information security,
image processing and multimedia. Supervised research experience has been
shown to motivate students and encourage higher levels of academic
achievement leading to increased retention and graduation for
undergraduate students, especially for underrepresented minorities. The
participants are also strongly encouraged to present their research at
regional and national scientific meetings. In addition to gaining
research experience, students will participate in other activities
designed to promote other skills such as communication skills, technical
writing skills, as well as presentation skills. This program will also
expose participants to the possibility of graduate study and encourage
them to choose this step in their career paths, which will increase their
employment prospective. The end result will be a strong set of graduates
who can satisfy at least some of the needs for Engineering and IT
professionals in research and industry. The undergraduate participants
in this program will be recruited nationwide, particularly from
minority-serving and other small colleges. Also, underrepresented groups,
including minorities and students from small colleges and universities
with little research opportunities are strongly encouraged to apply.